Dissertation Research: The Body and The Self: The Impact of Human Genome Research on Human Identity

Martin/Taussig 9307563 This project will employ ethnographic methods to investigate the impact of human genome research on shaping identity and related conceptualizations of body, community, and nation-state boundaries in the Netherlands. The objectives of the project are: (1) To investigate how changes in scientific and other forms of knowledge of the human genome affect the way people perceive biological and social identity; (2) To examine how this knowledge affects conceptualizations of the body; (3) To elucidate the tension between what is made possible by advances in genetics and socially valued conceptualizations of the self and the body; and (4) To examine how scientific knowledge is produced in genetics laboratories and how the general population learns about and makes sense of this knowledge. These objectives are designed to develop a foundation of knowledge about what a wide range of people think about the human genome and to understand how on-going human genome research affects articulations of identity and conceptualizations of the body. *** er time and whether this process resulted in smaller competing cente ! ! F < < S Times New Roman Symbol & Arial 1 Pres Elite 5 Courier New & Casablanca " h % % 1 d martin taussig abstract abstract marting taussig abstract Raymond Hames Raymond Hames